A Knowledge-Based Approach to Design Representation and Analysis

The innovations expected during the efforts carried out in this project relate primarily to the integration of expert system technology into mechanical design and finite element analysis. The resulting software will provide an efficient three-dimensional design tool that will make expert skills available to the novice user without requiring an exhaustive background in the finite element theory and terminology. This availability is likely to reduce design time and productivity. The design-representation system (DRS) will represent the design in a format that may be addressed by a variety of other applications. Feature-based design is gaining popularity and the intended generality of the DRS will represent an advance in this domain. This project presents some challenging obstacles that will need to be overcome during its implementation. The application of expert system technology to mechanical engineering is a relatively new field of research, and there is little prior work in this area. It is expected that the research will capture the qualitative nature of analysis practices in the form of an integrated kilobyte and also improve the capabilities of computer-aided design via artificial intelligence techniques.